Experimental Neutrino Physics

One of the major intellectual achievements of the 20th century was the development of the Standard Model (SM) of particle physics. This model succeeded in classifying all of the elementary particles known at the time into a hierarchy of groups having similar quantum properties. The validity of this model to date was recently confirmed by the discovery of the Higgs boson at the Large Hadron Collider at CERN. However, the Standard Model as it currently exists leaves open many questions about the universe, including such fundamental questions as to why the Higgs mass has the value it has and why there is no antimatter in the universe. A primary area to search for answers to these and other open questions about the universe, how it came to be and why it is the way it is, is to focus on a study of the properties of neutrinos and to use what we know and can learn about neutrinos as probes of science beyond the Standard Model. Neutrinos are those elementary particles that interact with practically nothing else in the universe. They have no electric charge and were once thought to be massless. Like other elementary particles, they were believed to have an antimatter counterpart, the antineutrino. Moreover, the Standard Model predicted that there were actually three different kinds of neutrinos that were distinguishable through the different interactions that they did undergo whenever there was an interaction. But recent measurements have totally changed our picture of neutrinos. We now know that neutrinos do have a mass and because they do, they can actually change from one type to another, i.e. oscillate. Detailed measurements of these changes, along with other current neutrino experiments, form one of the most promising ways to probe for new physics Beyond the Standard Model (BSM). This particular project will focus on the study of the oscillations of the neutrinos between different types. The award will support the work of one post-doctoral researcher as well as graduate and undergraduate students.

This award supports work, using the neutrino beam at the Fermi National Accelerator Laboratory (FNAL), on the neutrino experiments: MINERvA and MicroBooNE, both measuring neutrino oscillations: muon neutrino to electron neutrino transitions. These oscillations are of great interest to the scientific community since they could show indications of BSM physics. To correctly measure these transitions, precise knowledge of neutrino interactions with nuclei is required. This award will be used to measure these interactions across a wide energy range available at FNAL, which will be beneficial for both neutrino and nuclear physics. This will improve our knowledge of the neutrino flux, useful for future Short Baseline (detector near the source at FNAL) and Long Baseline (detector hundreds of kilometers away).